Introduction of FT-NMR Spectroscopy into the Undergraduate Curriculum

Through this project, the institution was able to acquire a Varian Gemini-300 FT-NMR spectrometer for improvement of undergraduate education in chemistry. Introduction of multinuclear, high resolution NMR capabilities greatly enhanced the chemistry curriculum in five areas. 1) In organic chemistry NMR is bein utilized for structural and kinetic analyses and has been essential for successful microscale conversion. 2) The integrated Lab program applies NMR to a variety of physical, organic, and inorganic problems. 3) In biochemistry, NMR is used for the real-time analysis of metabolism and for structural analysis. 4) A new course was introduced, which integrates theory, instrumental design, and applications of NMR at a level suitable for undergraduates. 5) NMR enhanced the expanding undergraduate research program. This project has overcome the major deficiency which existed in the chemistry and biochemistry curriculum at the institution by training students in a spectroscopic technique that is widely used in all areas of chemistry. It also elevated the level of research performed by undergraduates. The institution is contributing in an amount one and one-half times the NSF funds.